Education & Outreach Planning for DUSEL

This award supports planning for the Sanford Center for Science Education (SCSE) which will be the exhibition and education component of the Deep Underground Science and Engineering Laboratory (DUSEL) at the former Homestake Gold Mine in Lead, South Dakota. In particular, the award supports the design of what will go into the SCSE -- key program components and a preliminary design of its exhibit space. This request will also support the development of the SCSE's organizational structure and a transition plan for getting from preconstruction through Opening Day. This science education center is planned to provide exceptionally innovative and cutting-edge exhibit experiences, expand educational opportunities for a wide array of students and teachers, and generally enhance the efforts of Homestake-DUSEL.